REU Site: Undergraduate Teacher Training in Materials Synthesis and Processing

9619834 Kouvetakis The Departments of Chemistry and Biochemistry, Chemical, Bio, and Materials Engineering, Physics and Astronomy, and the Center for Solid State Science at Arizona State University (ASU) will establish a Research Experience for Undergraduates (REU) site at ASU. The goal of the REU program is to introduce basic materials synthesis and processing to prospective middle and high school teachers, that is, pre-service teachers. The REU site is designed to attract undergraduate students that are engaged in education and teacher training at ASU and at institutions where the opportunities to participate in research programs are limited. Student participants from universities, community colleges, and tribal colleges in Arizona will be involved in research which includes bioactive surface coating for medical implants, semiconductor corrosion from process residuals, and binary and ternary semiconductor alloys. The student participants will develop teaching modules for the pre-college classroom under the joint guidance of the science and education faculties at ASU. %%% This project targets an important sector of the undergraduate student population: future middle and high school teachers, and has the potential for a broad-reaching impact on the science education of future generations. ***